Microparticle Chemical Reactions and Chemical Spectroscopy

The project deals with the optical determination of chemical composition and chemical reactions of a single, electrodynamically levitated aerosol particle. Raman and fluorescence spectroscopic techniques will be developed for this purpose. Physical and chemical phenomena around a single particle will be controlled and measured with especially conceived methods. The effect of the enhanced electrical field near the particle surface will be considered in the spectroscopic methods. By using particles with different (unreactive and reactive) cores and surface layers, it is possible to separate the particle core and surface effects. A new technique is proposed to study microparticle chemistry at elevated temperatures using laser heating. The project will advance the Raman spectroscopy and fluorescence spectroscopy applied to ultrafine particles. The results will be useful for basic understanding of phenomena taking place at the scale of a single aerosol particle, and has applications in pollution control, material synthesis by aerosol processes, pharmaceutical and other industries.